Collocation Methods for Partial Differential Equations

From [email] Sat Jun 27 16:02:38 1998 Date: Sun, 21 Jun 1998 09:02:48 -0600 (MDT) From: Graeme Fairweather <[email]> To: "John C. Strikwerda (MPS/DMS)" <[email]> Cc: [email], [email] Subject: Re: NSF Proposal Dear Dr. Strikwerda: DMS 9805827 Bernard Bialecki and Graeme Fairweather The focus of this project is on the formulation, theoretical analysis and efficient implementation of orthogonal spline collocation (OSC) algorithms for various partial differential equations arising in problems of practical interest. Research will continue on the iterative solution of OSC equations arising in second and fourth order elliptic boundary value problems. Promising new methods have been formulated for rather general second order linear elliptic problems, and in a study of the OSC solution of nonlinear elliptic problems the use of these methods will be addressed. The investigation of iterative methods and nonlinear problems is expected to play an important role in the development of OSC for nonlinear biharmonic and Stokes problems. Work will continue on Schrodinger problems in two space variables, in particular, problems arising in plate vibration problems and nonlinear problems. Algorithms developed for biharmonic problems will be used in certain time-stepping procedures in cases where alternating direction implicit methods cannot be formulated. A study of collocation methods for solving partial integro-differential equations, including problems with nonlocal boundary conditions, will also be undertaken. Throughout this project, rigorous theoretical analysis will be combined with the design and numerical testing of algorithms. Many problems in science and engineering are modelled by partial differential equations which fall into several distinct categories with quite different characteristics. In this project, several types of equations are considered, for example, biharmonic problems which arise in fluid dynamics and plate bending and are of particular interest in the aviation industry, and Schrodinger equations which model problems in quantum mechanics, underwater acoustics, plasma physics, vibration problems and seismology. Some problems, such as biharmonic problems, are steady state, that is, independent of time, and investigations of these often provide insight into the handling of time-dependent problems, like Schrodinger equations. Basic models are usually linear and techniques developed for their solution guide the treatment of more realistic - nonlinear - situations. Time dependent problems which take into account the history of a process, as in viscoeleasticity, result in partial integro-differential equations. Because of the complexity of the partial differential equation models, one must resort to computational techniques for their solution. In this project, numerical methods called orthogonal spline collocation methods will be developed for several classes of linear and nonlinear, steady state and time-dependent problems of the form just described. These methods have several advantages over existing techniques, including the ease with which they can be implemented on high performance multiprocessor computers and the accuracy of the approximations produced. The successful completion of this project will provide efficient algorithms built on a strong theoretical foundation for the solution of problems of much practical importance.